Doctoral Dissertation Research: Between Property and Privilege: The State, Property Rights, and Business in Porfirian Mexico (1876 - 1911)

9410880 Haber This Dissertation Improvement research examines the economic consequences of legal institutions within the transitional economy of Porfirian Mexico during the period of 1876-1911. The study will analyze the institutional framework for economic activity and the contractual relations between government and private enterprise in a state where institutional reform was implemented to eliminate traditional constraints to industrial innovation and economic growth. One set of legal institutions, the federal New Industries (IN) act of 1893, will be examine to see how the government allocated and adjudicaton property rights. Hypotheses about how well Mexican property rights were defined and whether Mexico business was highly politicized will be tested and an analysis completed of the effects of property rights policies on investments levels and the competitive structure of industry. In sum, this project will re-examine the Mexican political economy using theoretical tools of the economic theory of property rights. Data will be collected through examining extant legislation, congressional debates and newspaper commentaries to ascertain the intentions of those who established and administered public policy regarding property rights and economic promotion. The complete administrative records of the IN program available in the Mexican national archive and supplementary materials in the notarial and judicial archives will also be used. In addition, data will be collected from the financial press.